MIDnet Phase Three

9316170 Gale This award provides for extending MIDnet's service to less populated areas and non-traditional users, enhancing the network's technical services capability, and improving user support. The award provides partial support of these improvements for three years. ***